RUI: Developing Bayesian statistical models incorporating mechanistic processes for ecological data

Drawing reliable scientific conclusions from ecological data requires statistical models that account for both the biological processes governing ecological systems and the uncertainty inherent in imperfect observations. However, key ecological processes such as species interactions, animal movement, and population growth are typically unobserved, requiring statistical models to estimate these hidden processes from the available data. Additionally, ecological data are often noisy or incomplete, making it difficult to distinguish true biological patterns from observational uncertainty. New statistical models are developed that combine ecological knowledge with available data to estimate hidden ecological processes while rigorously quantifying uncertainty. These models and inference methods are closely related to machine learning and artificial intelligence. Rather than relying on a one-size-fits-all approach, the project develops three complementary models tailored to different types of ecological data. Together, these models produce biologically meaningful insights and more reliable predictions to support conservation, environmental management, and regulatory decision-making in the regions where the data are collected. This project also provides research opportunities to undergraduate students.

Statistical ecology develops probabilistic models to infer ecological processes from imperfect and incomplete data. The project develops three Bayesian hierarchical models that link latent ecological states to observed data while explicitly incorporating biological mechanisms. The first is a joint change-point model for zero-inflated, non-negative community abundance data that accounts for species interactions. The second is a stochastic growth model for longitudinal terrapin physiological measurements that characterizes demographic processes through time. The third is a three-dimensional animal movement model that quantifies whether and how the movement behavior of a shark community changes following the construction of a subsea power line. Collectively, these models advance the field of statistical ecology by developing novel methodology for joint modeling of community abundance data and for characterizing both community-level and three-dimensional animal movement. The project extends current statistical modeling efforts that attempt to incorporate ecological mechanisms within a stochastic model. The models are developed to be computationally efficient and suitable for large, complex ecological datasets. The resulting methods improve inference and prediction for complex ecological systems while contributing broadly applicable Bayesian methodology for ecological and environmental data analysis.